HEC: File System Tracing, Replaying, Profiling, and Analysis on HEC Systems

The PIs propose to develop scalable tools and techniques that will work on large clusters to identify I/O performance bottlenecks, visualize them for cluster users for ease of analysis. Thiese techniques will conduct large scale tracing and replaying, collecting vital information useful to analyze the cluster's performance given a specific application. The PIs will use automated and user driven feedback to raise or lower the level of tracing on individual cluster nodes to (1) zoom in/ on hotspots and (2) trade off information accuracy vs. overheads. Extensive investigations will go toward ensuring the accuracy of the information.